Conference: Travel grants for U.S. participants, SPA Cornell 2026, 45th Conference on Stochastic Processes and Their Applications

The 45th Conference on Stochastic Processes and Their Applications will take place at Cornell University, Ithaca, NY, USA, from June 14 to 20, 2026. Organized under the auspices of the Bernoulli Society for Mathematical Statistics and Probability with the support of the Institute for Mathematical Statistics, it is the major international annual conference on Probability theory. This annual conference is a key vector of new advances and provides participants the opportunity to stay abreast of the latest developments in this wide ranging and very important area of mathematics.

The conference will bring to Ithaca, NY, the worldwide leaders of the field of Stochastic Processes and Their Applications. They will present their most recent results and organize invited sessions on the most current topics of interest in probability theory. These subjects cover a wide variety of topics from quantum gravity, the Gaussian free field, random environments, Lattice Gauge theory, the geometry of random fields, and much more. The website for the conference is: https://events.ces.scl.cornell.edu/event/spa2026/summary